CAREER: Computational number theory, cryptography, and computer security

Internet attackers gain access to computers in two ways. The first way
is by monitoring and imitating the Internet activities of an authorized
user. There are well-known cryptographic algorithms that protect against
eavesdroppers, but today's cryptographic software is too slow to be
universally deployed. The second way is by locating and exploiting bugs
in communications software. The security community has been working for
years to find these bugs before the attackers do, but programmers are
adding bugs to security-critical software faster than security experts
can fix them.

This CAREER award project spans five areas: (1)
cryptographic algorithms fast enough to be used for all Internet
communications; (2) cryptographic protocols to protect specific Internet
services against espionage and sabotage; (3) educational tools to help
programmers learn how to write correct software; (4) tools to reduce the
amount of software in which bugs can produce security problems; (5)
secure replacements for widely used Internet servers that are habitually
plagued by security problems.